Chromatin dynamics underlying vertebrate developmental plasticity using turtle gonadogenesis as case study

Genome architecture and function are interdependent, suggesting that the evolution of 3D chromatin structure (3D-CS) – how active chromosomes fold in the nucleus, is linked to shifts in developmental programs that drive the evolution of traits (phenotypes) and adaptation to changing environments. Yet, the functional implications of 3D-CS dynamics in response to environmental stimuli remain largely unexplored, obscuring the molecular basis of developmental plasticity, gene regulation, genome-to-phenotype mapping, and the evolution of developmental systems, especially in non-model organisms whose 3D-CS is understudied. Among them, turtles are an excellent model to study developmental plasticity because their sex determination is thermosensitive in some species [temperature-dependent sex determination (TSD) and canalized in others [genotypic sex determination (GSD), as by sex chromosomes]. This project aims to illuminate 3D-CS dynamics and their functional implications for developmental plasticity and evolutionary adaptation, by studying sexual development in TSD turtles. Results are potentially transformative as studying 3D-CS dynamics over time in response to environmental stimuli is revolutionizing research on cell-fate and gene regulation in development and disease. Results could lead to biotechnological interventions to enhance conservation of TSD taxa by providing the foundation to understand how life might adapt to a changing planet, due to environmental or developmental disruptors, and to uncover novel targets for reproductive biomedicine. Other societal benefits include training opportunities across career levels (undergrad, grad, K-12 teachers) and science outreach to the public (pre-K to adults).

The functional implications of 3D chromatin structure (3D-CS) in response to environmental stimuli remain obscure in emergent-models such as turtles. The general goal of this project is to illuminate the plastic genomic architecture of turtle TSD, by testing the hypothesis that changes in 3D-CS affect chromatin accessibility and gene expression profiles in sex-specific ways, leading to ovarian and testicular development in painted turtles Chrysemys picta. For this, we will: (Aim 1) Test the hypothesis that 3D-CS responds to incubation temperature in developing gonads of TSD turtles, using Micro-C-sequencing to capture chromatin conformation at male-producing and female-producing temperatures, sampled at stages before, at the onset of, and during their thermosensitive period (TSP) for gonadal sex determination. (Aim 2) Test the hypothesis that modified-histone deposition changes in response to incubation temperature in developing gonads of TSD turtles, using CUT&RUN to capture chromatin activity by assessing the deposition landscape of active (H3K4me3) and repressive (H3K27me3) modified-histones using identical sampling as in Aim 1. (Aim 3) Test the hypothesis that thermosensitive changes in 3D-SC (from Aim 1) correlate with shifts in chromatin state (from Aim 2) and with gene expression profiles that direct gonadal development, using RNA sequencing data to capture genome transcription. Deliverables: (a) First multi-omic atlas of 3D-CS dynamics, chromatin state, and transcriptional maps during turtle sexual development; (b) novel mechanistic hypotheses predicting genome-to-phenome mapping for sexual development; (c) illuminating epigenetic basis of cell-fate and gene regulation in development and disease, by deciphering the spatiotemporal 3D-CS dynamics under environmental stimuli and transcriptional regulation underlying plasticity.